Dissertation Research: Menstrual Variation in Salivary Testosterone

Testosterone is one of the three major female steroid hormones (along with estrogen and progesteron). Testosterone is important in female reproductive function for its effects on both folliculogenesis and sexual behavior. Yet, despite demonstratations that testosterone levels change under a number of differenct ecological conditions, testosterone has not received much attention in studies of reproductive ecology. Assays of salivary testosterone offer several advantages, including non-invasive collections techniques and a measure of the non-bound fraction of the hormone levels is an appropriate means for analyzing ovarian function. Daily salivary samples will be collected for a single menstrual cycle from Boston women between the ages of 20 and 40. All samples will be assayed for testosterone, and for estradial which will be used to align the cycles. The results of the research will further our understanding of gonadal function in women. The data will not only demonstrate the use of salivary assays of testosterone as an indictor of ovarian function, but may have implications for changes in sexual behavior, such as coital frequency. This will be the first step towards incorporating the measurement of salivary testosterone into field studies of reproductive behavior and ecology.